Nonlinear and Computational Problems for Geophysical and Classical Fluid Mechanics

Temam
DMS-0906440

This award is funded under the American Recovery and
Reinvestment Act of 2009 (Public Law 111-5).

The investigator and his colleagues study nonlinear problems
from meteorology, oceanography, and fluid mechanics, using the
mathematical tools offered by analysis, the theory of nonlinear
partial differential equations, dynamical systems theory, and
computation. Besides improving the understanding of some
important problems, an aim of the project is to help improve the
numerical simulations of phenomena which bear many societal and
industrial applications. The parts of this project related to
meteorology and oceanography focus on the issue of open boundary
conditions for limited domain simulations, and well-posedness
issues for meteorology and oceanography in the absence of
viscosity. Other parts of the project relate to the study of
singular perturbations, that is, calculations in the presence of
small coefficients strongly affecting the equations, and
theoretical issues in turbulence.

Numerical simulations for weather forecasts are usually done
in a limited area around the region of interest; such
computations include the usual weather forecasts, or forecasts in
extreme situations, like a hurricane, or the study of
desertification. Similar geographically local questions arise in
oceanography, for example, the study of an estuary. An important
issue for limited areas is the choice of the boundary conditions
on the nonphysical parts of the boundary that are artificially
created for the sake of the computations. This issue becomes
more crucial as better computers allow more refined (more
precise) calculations. Inappropriate boundary conditions may
create incorrect waves (or winds), which may result for instance
in incorrect precipitation forecasts. The investigator and his
colleagues tackle this problem by theoretical and computational
approaches. They work in close collaboration with geoscientists
to ensure the practical relevance of the project. The project
also includes strong cross-training of students and postdocs in
geosciences and mathematics.